Workshop on LÏ2-methods in Geometry

Abstract

Award: DMS-9972298
Principal Investigator: Patrick T. McDonald

Successful L2-methods arise to address a wide variety of problems
in a number of contexts (for example, mathematical physics,
geometry, and topology). As this is the case, the methods
themselves are often strikingly different. Nonetheless, it is
often the case that these different methods can be used to
provide insight directed towards the same or similar problems.
The primary purpose of the workshop ``L2-methods in Geometry'' is
to bring together leading figures in geometric analysis who have
developed different L2-methods for investigating related
geometric phenomena. Topics which will be addressed at the
workshop will include: index theorems, traces and determinants of
pseudodifferential operators and their applications, spectral
invariants including analytic torsion and Novikov-Shubin
invariants, and Von Neumann algebra methods in (spectral)
geometry. The workshop will provide the young investigators with
a unique opportunity to interact with distinguished senior
colleagues who have developed a variety of approaches to
geometric problems and who will focus their collective attention
on a sharply defined collection of problems.

Analytic methods have contributed immensely to our collective
understanding of many mathematical disciplines, as well as to our
understanding of a number of fundamental topics in physics, some
of which have found their way into important applications (for
example, various imaging techniques). This workshop will bring
together a distinguished international collection of scholars who
have made fundamental contributions to the field of geometric
analysis. These contributions reflect a diverse collection of
perspectives offerred as explanations for the same or similar
phenomena. Bringing these perspectives together will foster an
exchange of ideas and collaboration on problems of deep interest
to the mathematics community at large. Such an environment will
provide many young investigators with a valuable oppportunity to
compare and contrast a variety of ideas and approaches, shaping
the direction in which they will move.